An Undergraduate Computer Engineering Educational Framework for using Field Programmable Gate Arrays as Efficient Hardware Accelerators

Computer Science (31)

The "An Undergraduate Computer Engineering Educational Framework for using Field Programmable Gate Arrays (FPGA)s as Efficient Hardware Accelerators" project is developing educational materials for an undergraduate course on mapping algorithms to FPGAs to conduct high performance computing.

Intellectual Merit: This project is evaluating teaching FPGAs at the undergraduate level. It is developing educational materials, including hands-on labs, for instructing students in the design and implementation of algorithms on FPGA hardware.

Broader Impact: This project is responding to a national need for increased numbers of computer scientists able to leverage the computational power of FPGAs. The PIs are disseminating their results through a workshop and presentations at both regional and national conferences.